Single-Input and Multiple Out-put Ports Energy Dissipating Mechanisms for Improved Vehicle Crashworthiness

The objective of the study is to evaluate the feasibility and effectiveness of integrating a multidirectional energy absorbing device into the front frame of an automotive structure to allow for maximum energy absorption with reduced longitudinal deformation. The premise is that the application of a single- input, multiple-output mechanical device to the frame of a vehicle could dissipate energy in mutually orthogonal directions, thereby absorbing significantly more energy with a smaller longitudinal displacement. Therefore, the likelihood of passenger compartment intrusion and occupant injury would be greatly reduced. The plan for completion of this study involves four phases: Phase I involves research in the area of single-input, multi- output devices. Phase II, the Design Phase, involves preparation of a preliminary design for integration of such a device into a vehicle structure. Phase III, the Modelling Phase, involves a mathematical model of the designed system with simulated mass distributions. The response of the system, possibly under various impact conditions, is determined. Phase IV, the Verification Phase, determines the degree of correlation between the analytical prediciton of Phase III and the experimental data acquired in Phase IV. The experimental data may be gathered by testing of a scale model. The project is one supported under the Creativity Awards for Engineering Students.